Toward Understanding the Relation Between Volcanic Eruptions, Seismicity, and Infrasound

Toward understanding the relation between volcanic eruptions,
seismicity, and infrasound

Researchers at the University of New Hampshire and Lehigh University are
focused on understanding the relation between volcanic eruptions and the
energy which is radiated into both the seismic and acoustic wavefields.
Through support from the National Science Foundation, they will be
investigating the temporal relation between explosive degassing and the
generation of elastic waves in order to gain greater insight into
volcano conduit source processes prior to and during explosive
fragmentation of magma. They will also be quantifying the elastic
energy release and comparing it with observed eruption intensities
(quantified through high-speed video), which will be used to develop
empirical and theoretical models for energy transfer during eruptions.
This topic has import implications for using elastic waves to remotely
asess the intensity of eruptions especially during periods of inclement
weather when visible or satellite observations are not possible. A
better understanding of the mechanisms and trends of volcanic activity
will ultimately increase our ability to predict the timing and nature of
destructive events

To accomplish these goals, the grantees will analyze existing
seismo-acoustic datasets from seven diverse erupting volcanoes, which
exhibit intermittent and low-level explosive volcanic activity.
Additionally, two volcanoes located in Guatemala (Fuego and Santiaguito)
are to serve as field sites for an integrated seismo-acoustic-video
experiment to be conducted in the winter of 2006. These two volcanoes
have been selected because of the extraordinary visibility of their
active vents afforded from vantage points atop nearby neighboring
summits. High-speed, high-resolution, satellite-time synced video will
be acquired in concert with seismic and acoustic monitoring. New video
image processing techniques will be developed to analyze and quantify
eruptive manifestations. The intellectual merit of this project
includes improved understanding of the enigmatic seismicity that is
radiated during volcanic eruptions. Other broader impacts include
research opportunities for a graduate student at the University of New
Hampshire and expanded collaboration and outreach with volcano
observatories in other countries.